Pseudorandomness and Fault Tolerance

PI: Zuckerman, David I.
Institution: U of Texas Austin
Proposal Number: 9912428

Abstract

There have been interesting recent results on the connection between pseudo-randomness and fault-tolerance. This project investigates these connections further.
In psudo-randomness, the project investigates extractors, derandomizing space-bounded computations, pseudorandom generators for combinatorial rectangles and pseudorandom permutations. Each item on the list has an application to the following item. In fault-tolerance, the project investigates randomized computation in the perfect infomation and cryptographic models, and aspects of error-correcting codes related to extractors.